Mathematical Sciences: Nonlinear Problems of Solid Mechanics

9623261 Antman The PI proposes to treat a variety of dynamical and steady-state nonlinear problems for rods, shells, and three-dimensional solid bodies. The bodies are composed of nonlinearly elastic, viscoelastic, plastic, viscoplastic, or magnetoelastic materials. He also intends to treat fluid-solid interactions. In each case, properly invariant, geometrically exact theories encompassing general nonlinear constitutive equations are to be used. The goals of these studies are to discover new nonlinear effects, determine thresholds in constitutive equations separating qualitatively different responses, examine important kinds of instabilities, contribute to the theory of shocks and dissipative mechanisms in solids, and develop new methods of nonlinear analysis and of effective computation for problems of solid mechanics. %%% The investigator proposes to study the behavior of various solids undergoing large dynamic deformations, including cases in which the solid is interacting with a fluid, as happens in airplanes and ships. By applying modern mathematical methods to theories of deformable solids formulated with great generality and precision, he intends to treat problems for large families of materials at one time. One aim of this work is to determine unexpected instabilities, which can adversely alter the response of structures used in technological applications. He also proposes to contribute to the theory of material behavior, to the development of methods for the control of material behavior (by using smart materials involving electromagnetic effects, for example), and to the development of new mathematical and computational methods capable of handling these difficult and important applications. ***